Microscopic Aspects of Nuclear Collective Motion (Physics)

The proposal attempts a microscopic description of collective modes in nuclei, utilizing the method of successive boson expansions. When the procedure proposed for removing the spurious states so generated works, the method will be applied to a variety of realistic problems. Several outstanding problems that arise in the context of the Interacting Boson Fermion Model of odd-mass nuclei will also be investigated, as will several other problems of contemporary importance in nuclear structure physics.